NNA Track 2: Collaborative Research: Planning for Climate Resiliency Amid Changing Culture, Technology, Economics, and Governance

Navigating the New Arctic (NNA) is one of NSF's 10 Big Ideas. NNA projects address convergence scientific challenges in the rapidly changing Arctic. The Arctic research is needed to inform the economy, security and resilience of the Nation, the larger region and the globe. NNA empowers new research partnerships from local to international scales, diversifies the next generation of Arctic researchers, and integrates the co-production of knowledge. This award fulfills part of that aim.

This project is taking a unique approach to investigating what is needed to enable subsistence communities in the Arctic to remain sustainable in the future: questioning the common assumption that climate impacts and sea ice loss are the most important changes impacting subsistence activities in the Arctic. The group will broadly consider a set of interconnected factors and feedbacks, including changing culture, technology, economics, and governance in addition to climate. The proposal includes a clear plans to integrate co-production of knowledge and to capture the linkage between researchers and native communities. This project may lead to a holistic approach to the evolution of subsistence living in the Arctic and to create a community of practice including Arctic peoples with traditional knowledge and university-trained scientists.

This project is exploring a series of hypotheses designed to stress-test assumptions about the role of rapid physical environmental change in disrupting traditional ways of life for Arctic coastal communities. A community of practice composed of academics from various disciplines and residents of the Arctic communities of Utqiagvik and Kotzebue is being established to consider a central guiding question: How can Alaskan subsistence communities best prepare for and adapt to climate change in a world where nothing else is static? The outcomes of this work include tools and methods for understanding motives of climate adaptations in Alaska Native communities and assessing their effectiveness. The project is also coproducing a plan for future research aimed at improving community and individual resilience in the face of impending Arctic changes